Multi-Station Auroral Spectroscopy

In this study the aurora will be viewed from Godhavan, Greenland (near the magnetic meridiana distance ~290km northwest of Sondre Stromfjord, Greenland) with an imaging spectrometer. Simultaneously the incoherent scatter radar and other optical instruments will view the same aurora in the magnetic zenith at Sondre Stromfjord. The method provides measurements of source emission intensities versus altitude, while simultaneous measurements of the particle beam is made with the radar. The first scientific objective is a study of electron beam versus emission heights. Studies of auroral arcs and thermospheric effects will also be performed. Two winter campaign periods are planned. A dedicated two week "aeronomy" campaign is planned where the radar will be predominantly operated looking up the magentic field. Operation is also planned for two additional two-week, low moon, periods with "shared" radar time. The first campaign will concentrate on the 420-800 nm spectral region. Height distributions of the entire spectrum will be measured. The spectral region for the second campaign will evolve from the results of the first.